Uncertainty and Production-Investment-Location Problems: Model Formulation, Analysis, and Solution Algorithms

This research deals with the development of methodologies which will allow the incorporation of uncertainty considerations into Production-Investment-Location problems. These problems involve choices of input mix, type of production technology, and investment strategies under various assumptions on levels of risk and government regulation. Theincorporation of uncertainty into existing deterministic models will make these models more realistic as instruments for evaluating production-investment- location decisions.